Workshop on "Future Directions in Evaluating Earthquake Hazards of Southern California," November 12 and 13, 1985, University of Southern California, Los Angeles, California

Support is provided for the "Workshop on Future Directions in Evaluating Earthquake Hazards of Southern California." The objectives of the workshop include: (1) to summarize some of the results of recent research on evaluating earthquake hazards, (2) to present examples of ongoing earthquake - hazard - reduction efforts, and (3) to discuss what additional scientific and technical information is needed and which hazard - reduction techniques are most effective. This project will help the program assess its earthquake research activities and identify possible future directions.